Mathematical Sciences: Cooperative and Stochastic Games

This project will consider cooperative and stochastic games. For cooperative games, questions related to Shapley value will be analyzed when the players are assumed to join coalitions with varying levels of effort or sincerity. In addition, the notion of potential function for this kind of games will be considered. For stochastic games, the existence of efficient algorithms and equilibria will be studied. Models developed in this project apply to a many phenomena in areas such as economics, finance, social and military science. Due to the generality of the methods a vast area of knowledge is to benefit from the results of this grant.